An Isotopic Study of Volcanic Rocks from the Western Branch of the East African Rift

This project involves the analysis of helium and oxygen isotope, and strontium-neodymium-lead isotopes in samples of young lavas from the Rungwe, South Kivu, Virunga and Toro- Ankole volcanic provinces of the East African Rift. A diverse suite of rock types will be analyzed. These samples are petrologically well characterized, well located, many have been dated by K-Ar, and some are now being studied for Os isotopes. Isotopic variability will be investigated at three different scales; along the rift, within volcanic fields, and within individual volcanoes. The coherent data set will provide constraints on the petrogenesis of these various rock types in a young continental rift, the nature of the associated fluid and melt transport from the mantle to the crust, and a better understanding of mantle and lithospheric sources in the magmatic development of the East African Rift system.